U.S. France Workshop: Study of Human and Environmental Paleoecology in the Western Aleutian Islands, Paris, France May 1996

This award will support a U.S.-France planning workshop to be held in Paris, France in May, 1996. It will be coordinated by Douglas Siegel-Causey of the University of Nebraska and Christine Lefevre, Curator and Archaeologist of the Comparative Anatomy Laboratory at the French National Museum of Natural History. The objective of the workshop is to develop a joint research project on human and environmental interaction, over a long interval of time, in the Aleutian Islands. They also propose to synthesize preliminary results of previous field studies on Aleutian archaeology and study collections on the Aleutian Islands in the 19th century at the French National Museum of Natural History .